IAI Small Grant Program

The Inter-American Institute for Global Change Research (IAI) will carry out a small one-time award program to encourage collaborative activities in global change research among scientists and institutions of the IAI member countries. The Small Grants Program (SGP) will be the foundation of a second phase of IAI programmatic development, leading to the establishment of new long term research networks that will succeed the current Collaborative Research Network, supported in part by a separate NSF grant. High priority has been given in this selection to high-quality science and the participation of new/young scientists from IAI member countries.
After an open call and a merit-based peer-review the IAI has selected the following activities:
--A. Research (10 awards):
1. Esteban Jobbagy, ARGENTINA: "Climate and Land Use Controls on Ecosystem Functioning: Understanding Processes and Developing Tools for a Sustainable Use of Temperate Ecosystems" (Other Countries: Uruguay and USA) $29,820
2. Arturo Sanchez, CANADA: "Connecting Satellites to the Human and Ecological Dimensions: Sustaining Tropical Forests for the Future" (Other Countries: Costa Rica and Mexico) $28,360
3. Claudia Wagner-Riddle, CANADA: "Carbon Sequestration Monitoring in Rubber-tree Plantations" (Other Countries: Brazil and USA) $29,980
4. Roberto J. Fernandez, ARGENTINA: "Dendroecology as a Tool for Assessing Past Land-Use in Arid Zones: Wood Structure Modifications and Associated Hydraulic Changes on a Patagonian Shrub Caused by Site Grazing" (Other Countries: Chile and USA) $29,900
5. Edwin Castellanos, GUATEMALA: "Adapting to Market Shocks and Climatic Variability in Mesoamerica: Coffee in Mexico, Guatemala, and Honduras" (Other Countries: Mexico, USA) $29,990
6. J.T. Arredondo Moreno, MEXICO: "An Inter-American Comparison of the Genetic Erosion of Key Species in Overgrazed Semiarid Rangelands" (Other Countries: USA and Argentina) $29,958
7. Enrique Martinez, CHILE: "Inter-Hemispheric Comparative Studies of ENSO Effects in Kelp Populations: Inhibition and Facilitation Mechanisms Determining Restoration After Massive Mortality Events" (Other Countries: Mexico and USA) $30,000
8. Rodolfo Rodriguez, PERU: "Dendrochronological Records and the Impact due to 'El Nino' on Rural Populations of the North Coast of Peru" (Other Countries: Canada, Chile and USA) $30,000
9. Charles Hall, USA: "Modeling How Land Use Change Affects the Nutrient Budget in the Guayas Watershed: Ecological and Economic Implications" (Other Countries: Chile, Ecuador and The Netherlands) $30,000
10. Luis Cifuentes, CHILE: "Promoting Public Health Assessment in Energy and Environmental Planning" (Other Countries: Argentina, Brazil and USA) $30,000
--B. Workshops (3 awards):
1. Avijit Gangopadhyay, USA: "Bio-Physical Modeling of the Northern Humboldt Current System" (Other Countries: Chile and Peru) $10,000
2. Jose L. Moran Lopez, MEXICO: "The Development of an Inter-American Network for the Characterization of Atmospheric Chemistry and a Sustainable Future" (Other Countries: Brazil and USA) $9,992
3. Ricardo Romero, URUGUAY: "Soil Moisture Variability in the Rio de La Plata Basin: Assessments of the Impact of its Variability and Forecast Applications for End Users" (Other Countries: Argentina, Brazil and USA) $10,000
--C. Technical Papers (1 award)
Marcela Vasquez-Leon, USA: "The Human Dimensions of Biodiversity Conservation and Sustainable Use of Marine Resources: An Integrated Assessment of Lessons from Three Co-management Initiatives in the Americas" (Other Countries: Brazil and Mexico) $15,000
%%%
The Inter-American Institute for Global Change Research (IAI) will carry out a small one-time award program to encourage collaborative activities in global change research among scientists and institutions of the IAI member countries. The Small Grants Program (SGP) will be the foundation of a second phase of IAI programmatic development, leading to the establishment of new long term research networks that will succeed the current Collaborative Research Network, supported in part by a separate NSF grant. High priority has been given in this selection to high-quality science and the participation of new/young scientists from IAI member countries.
After an open call and a merit-based peer-review the IAI has selected the following activities:
--A. Research (10 awards):
1. Esteban Jobbagy, ARGENTINA: "Climate and Land Use Controls on Ecosystem Functioning: Understanding Processes and Developing Tools for a Sustainable Use of Temperate Ecosystems" (Other Countries: Uruguay and USA) $29,820
2. Arturo Sanchez, CANADA: "Connecting Satellites to the Human and Ecological Dimensions: Sustaining Tropical Forests for the Future" (Other Countries: Costa Rica and Mexico) $28,360
3. Claudia Wagner-Riddle, CANADA: "Carbon Sequestration Monitoring in Rubber-tree Plantations" (Other Countries: Brazil and USA) $29,980
4. Roberto J. Fernandez, ARGENTINA: "Dendroecology as a Tool for Assessing Past Land-Use in Arid Zones: Wood Structure Modifications and Associated Hydraulic Changes on a Patagonian Shrub Caused by Site Grazing" (Other Countries: Chile and USA) $29,900
5. Edwin Castellanos, GUATEMALA: "Adapting to Market Shocks and Climatic Variability in Mesoamerica: Coffee in Mexico, Guatemala, and Honduras" (Other Countries: Mexico, USA) $29,990
6. J.T. Arredondo Moreno, MEXICO: "An Inter-American Comparison of the Genetic Erosion of Key Species in Overgrazed Semiarid Rangelands" (Other Countries: USA and Argentina) $29,958
7. Enrique Martinez, CHILE: "Inter-Hemispheric Comparative Studies of ENSO Effects in Kelp Populations: Inhibition and Facilitation Mechanisms Determining Restoration After Massive Mortality Events" (Other Countries: Mexico and USA) $30,000
8. Rodolfo Rodriguez, PERU: "Dendrochronological Records and the Impact due to 'El Nino' on Rural Populations of the North Coast of Peru" (Other Countries: Canada, Chile and USA) $30,000
9. Charles Hall, USA: "Modeling How Land Use Change Affects the Nutrient Budget in the Guayas Watershed: Ecological and Economic Implications" (Other Countries: Chile, Ecuador and The Netherlands) $30,000
10. Luis Cifuentes, CHILE: "Promoting Public Health Assessment in Energy and Environmental Planning" (Other Countries: Argentina, Brazil and USA) $30,000
--B. Workshops (3 awards):
1. Avijit Gangopadhyay, USA: "Bio-Physical Modeling of the Northern Humboldt Current System" (Other Countries: Chile and Peru) $10,000
2. Jose L. Moran Lopez, MEXICO: "The Development of an Inter-American Network for the Characterization of Atmospheric Chemistry and a Sustainable Future" (Other Countries: Brazil and USA) $9,992
3. Ricardo Romero, URUGUAY: "Soil Moisture Variability in the Rio de La Plata Basin: Assessments of the Impact of its Variability and Forecast Applications for End Users" (Other Countries: Argentina, Brazil and USA) $10,000
--C. Technical Papers (1 award)
Marcela Vasquez-Leon, USA: "The Human Dimensions of Biodiversity Conservation and Sustainable Use of Marine Resources: An Integrated Assessment of Lessons from Three Co-management Initiatives in the Americas" (Other Countries: Brazil and Mexico) $15,000